Undergraduate Internship Program in Biophysical Computing and Graphics: Protein Structure and Dynamics

This project will bring six undergraduate students to the Minnesota Supercomputer Institute in each of the summers of 1993, 1994 , and 1995. The students will work on ongoing, and new research in biophysical computing and computational dynamics, and in new software development efforts for scientific computing and graphics support for such research.